I-Corps: Translation Potential of an ambient-air femtosecond laser sintering process that enables rapid fabrication of high-density copper films

This I-Corps project is based on the development of a scalable, cost-effective copper manufacturing technology for next-generation flexible electronics. Currently, printed electronics rely heavily on silver-based materials, which are expensive and face reliability limitations in high-frequency and high-power electronic applications. This technology addresses these challenges by utilizing a processing method that allows high-density, highly conductive copper structures to be fabricated efficiently in ambient air without high temperatures. Initial target applications include flexible 5G/6G antennas and other high-performance printed electronic components. This technology may reduce the cost of manufacturing flexible electronic devices by enabling a transition from expensive silver-based conductors to copper-based alternatives. The innovation has potential applications in telecommunications, wearable electronics, advanced packaging, power electronics, and future Artificial Intelligence (AI) hardware systems. By eliminating inert-gas processing requirements and reducing reliance on precious-metal feedstocks, the technology may improve manufacturing efficiency and strengthen U.S. competitiveness in advanced electronics manufacturing.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an ultrafast femtosecond laser process that enables direct fabrication of high-density copper structures. The technology is based on using photo reduction and highly localized energy deposition to rapidly convert copper oxide into pure copper while preventing oxidation in ambient air. In addition, unlike existing copper processing methods that require complex inert-gas environments, this method minimizes heat damage to temperature-sensitive, flexible substrates. Technical results demonstrate high electrical conductivities, excellent mechanical durability, and broad compatibility with flexible substrates. Users may benefit from the adoption of this technology through a significant reduction in production complexity, lower material overhead, and enhanced component reliability across 5G/6G antennas, wearable electronics, and advanced electronic packaging.